Third Israeli Conference for Handling of Particulate Solids to be held at the Grand Nirvana, Israel, May 29 - June 2, 2000

Abstract
CTS-0000269
G.I. Tardos, CUNY

Partial travel support is requested for the participants at the Conference for Handling of Particulate Solids (Israel) to be held in conjunction with the Particle Technology Forum of the AIChE (US), Society of Powder Technology (Japan), European Particle Technology Party, Particle Technology Group of IChemE (UK) and International Freight Pipeline Society (US) meetings, at the Grand Nirvana, Israel, May 29 to June 2, 2000. This is an international meeting on particle science and technology, with focus on particle generation, processing and transport in gases or liquids. The research has relevance to chemical, mechanical and civil engineers, materials scientists, physics, and metallurgy. The Proceedings will be made available to the scientific community and industry. The Conference will creates opportunities to develop interdisciplinary interactions with academic communities from other countries and with industry, as well as to evaluate recent research results in particle science and technology.